Advancing U. S. Participation in International Scientific Organizations

The National Academy of Science Board on International Scientific Organizations (BISO) strengthens U.S. participation in international scientific, engineering, and medical organizations and builds the capacity of these organizations to contribute to international scientific cooperation. BISO accomplishes its work by organizing, managing, and evaluating activities of the International Council for Science (ICSU) within the United States. A key aspect of BISO’s mission is to provide oversight to more than 20 national committees to ICSU member unions and interdisciplinary bodies, thus supporting and building the international infrastructure for science. BISO also resolves issues related to the conduct of science and responds to opportunities to reduce barriers to international collaboration in scientific research.

This proposal is for core support of the NAS Board on International Scientific Organizations and includes dues for U.S. participation in the International Council for Science and the Pacific Science Association (PSA).